Collaborative Research: Homological Invariants in Crystallography

Proposal: DMS-0204823, DMS-0204845
Principal Investigators: Benji Fisher, David Rabson

A B S T R A C T

Fisher and Rabson are classifying the symmetry types of quasicrystals
in two and three dimensions and studying the physical consequences of
these symmetries. The classification generalizes the work begun in
the nineteenth century on space groups of crystals. The investigators
follow the Fourier-space approach to crystallography, which has the
advantage of avoiding space groups in higher dimensions. Thus the
classification starts from the known list of finite subgroups of the
orthogonal groups O(2) and O(3). They introduce techniques of group
cohomology, some of which have long been used in "direct space," to
the Fourier-space formulation. These techniques lead to both
theoretical simplifications and efficient computational methods. One
important application of these ideas is the description of certain
gauge invariants in terms of group homology. The two simplest types
of homology class are connected with known physical phenomena:
systematic extinctions in diffraction patterns and crossing of
electronic bands ("band sticking"). The next simplest type first
occurs in a rank-five tetragonal modulated crystal and should be
connected with some similar phenomenon. Tiling models are produced,
and the ideas are also extended to magnetic and color groups.

Crystallography underlies and informs much of physics, chemistry, and
geology. The present research has applications to recent experiments
in liquid crystals (related to the popular LCD displays on
wristwatches and other electronic equipment), plasmas, and modulated
crystals, highly symmetric systems that cannot be described by the
classical theory of crystals. Ever since 1784, when the French abbot
Rene Just Hauy deduced the microscopic structure of crystals, it had
been believed impossible for a crystal to have the symmetries of an
icosahedron (or a soccer ball). Precisely 200 years later, such
materials, called "quasicrystals," were discovered, and much research
has ensued into their properties. Quasicrystals possess strange
electronic and physical properties and have already found application
as high-quality, non-stick coatings on electrosurgical blades. The
present research aims to classify the symmetry types of crystals and
to study physical properties associated with these symmetries.

This project is funded jointly by the Division of Mathematical Sciences
and the Division of Materials Research.